Energetics of Phase Formation of Group VIII Transition Metal Silicides

9408558 Myers Free energies of phase formation of binary solid silicide phases of the Group VIII (Iron, Cobalt, Nickel) transition metals will be measured by means of a reactive effusion scheme coupled with mass spectrometric analysis of the effusing vapors. Silicides will be equilibrated with solid Silicon Dioxide at temperatures in the range of 800-1500 K. The gibbs free energies of formation will be calculated from the measured Silicon Mono-oxide(g) pressures combined with literature data for the equilibrium between these components. These results will be combined with heat capacity and entropy data to compute standard enthalpies of formation at 298 K. The results are expected to be useful in the modeling of a variety of metallurgical problems, in the verification of phase diagram features, and in the development and modeling of chemical vapor deposition processes used in the electronics industry. %%% The stabilities of compounds of silicon with cobalt, nickel and iron (i.e. strengths of chemical bonds) will be measured by high temperature techniques involving a study of reactions between these materials and silicon dioxide. Results are expected to be useful in development and modeling of processes used in the electronics industry and in modeling of metallurgical problems. ***